Today, Tomorrow, Forever: The Role Living Institutions Can Play in the UN "Decade of Education for Sustainable Development" -- A Conference at the Bronx Zoo, NY, Nov. 4-5, 2004

The WCS/Bronx Zoo, in partnership with the United States Coalition for the Decade of Education for Sustainable Development (USCDESD), will host a two-day summit targeting professional educators working for institutions that maintain living collections (such as zoos, aquariums and botanical gardens). The goal of the summit is to provide an opportunity for sharing of best practices and development of strategies and recommendations that these institutions can utilize in supporting the UN Decade of Education for Sustainable Development (DESD). A key focus will be the fundamental role science has played and will continue to play in finding solutions to the challenges of sustainable development. The summit will involve staff from approximately 50 institutions across the nation and will result in a Recommendations Document and set of Action Plans that will guide the work of the participants, and the field, in the creation of science education programming focusing on sustainable development and the Decade.